Design and Implementation of a Database System for Identified Neurons, Development, and Genetics of Zebrafish

This grant supports the planning and initial development of a database for neurons of the zebrafish nervous system. Neurons are the integrative units of nervous systems. A common goal in many areas of neuroscience research is to understand nervous system organization and function in terms of the properties of individual neurons. The zebrafish nervous system contains large numbers of identifiable neurons, some of which have been characterized in terms of their detailed anatomical, physiological, developmental and genetic properties. The objectives of this grant are: to develop a prototype database system for neuronal, genetic and developmental zebrafish data which will provide meaningful ways of relating various neuronal properties (and thus help understand neuron functions) and to make that database publicly available over the Internet.